DNA Fingerprinting: Law and Science in Criminal Processes

9312183 Jasanoff Scientific evidence, reports, and testimony play an increasing role in decisionmaking, ranging from the actions of individuals and private organizations, to those of the courts and other public authorities. This study investigates different aspects of a controversy that has developed in recent years over the use of DNA fingerprinting evidence in U.S. criminal trials. The objective is to describe and explain how the legal setting frames a controversy over the design and dissemination of a scientific technique. The study will examine how claims about scientific facts, consensus, expert authority, and technical reliability are presented and evaluated in different research contexts, in the courts and in the science press. To place the current controversy in a legal and historical context, the study will examine the history of relevant legal decisions and legislation, and will compare DNA fingerprinting with the cases of (non-DNA) fingerprinting and polygraph analysis. The study will combine ethnographic interviews, analyses of texts and court testimony, and legal and historical scholarship. The interviews will explore the understandings of the techniques and controversies from the points of view of different participants, including: population geneticists and other university scientists; staff scientists, case examiners and administrators at the FBI laboratories; and research staff and managers at a private forensics firm. Records of court cases and transcripts of testimony will be analyzed to show how expertise, consensus, and technical reliability are represented in the legal setting. Preliminary evidence indicates that researchers from different disciplines and in different contexts design the "same" molecular biological techniques in very different ways, and find them more or less reliable under different organizational circumstances. These differences, and others related to the social construction of authority, may influence discrep ant assessments about the techniques made by judges and juries, when scientists appear as expert witnesses in trials. Few studies of scientific and technological controversies have explored questions on how the legal setting constructs scientific controversy, by providing a forum in which expert testimony is solicited in adversary disputes about the reliability of techniques. Besides contributing information about how parties in these controversies construe the legitimate and ethical use of expert authority, as well as the cultural commitments with which the divergent positions are infused, the present study will reveal substantive implications and differences in the development of scientific and social consensus, and in the negotiations over boundaries in science and the law, and over what constitutes expertise. ***